Collaborative Research: CyberAI Innovation: A Scalable Pedagogy for Trustworthy Cyber-Physical Manufacturing Systems

As manufacturing adopts artificial intelligence (AI) systems that perceive, reason, and control physical machinery, cyberattacks can cause equipment damage, defective products, production disruptions, and safety hazards. Addressing these risks requires a workforce trained in both AI security and manufacturing operations, yet many institutions lack access to costly industrial laboratories. This project will develop and openly disseminate a low-cost, scalable toolkit for hands-on education in securing AI-enabled manufacturing, expanding access for community colleges and under-resourced institutions.

The project will create and evaluate a six-module experiential curriculum for trustworthy AI in cyber-physical systems using a cloud-edge-client testbed that combines secure digital twins with low-cost edge-computing kits. Large language model agents will emulate context-aware cyber-physical attacks in isolated simulations and provide real-time, physics-informed guidance. Modules will cover trustworthy AI foundations, agentic threat detection, Retrieval-Augmented Generation (RAG) for defensive knowledge synthesis, edge hardware security, physics-informed verification of autonomous mitigation actions, and multi-agent swarm defense. Curriculum modules, digital-twin environments, datasets, and hardware blueprints will be released as open-source resources through a national portal, train-the-trainer activities, and an annual hackathon.

This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.